Conference: Modern Representation Theory and Algebraic Geometry at ESI

This award provides travel and accommodation support for US-based mathematicians to take part in the eight-week international program on Modern Representation Theory and Algebraic Geometry, to be held from March 15 to May 7, 2027, at the Erwin Schroedinger International Institute for Mathematics and Physics in Vienna, Austria. Representation theory and algebraic geometry are foundational branches of mathematics whose interaction has driven major advances in understanding symmetry and structure, with connections reaching into theoretical physics. By supporting the travel of American researchers, including graduate students and postdoctoral scholars, this award will strengthen ties between the U.S. mathematical community and researchers worldwide and provide training for early-career researchers.

The program's goal is to unite researchers in geometric representation theory whose work has developed somewhat independently across the United States, Europe, and beyond. Its scientific scope includes Higgs bundle moduli spaces, quiver and bow varieties, moduli of coherent sheaves, and Coulomb branches of gauge theories, along with related structures such as Hall algebras and quantum groups. Particular emphasis will be on three-dimensional mirror symmetry, symplectic duality, enumerative invariants such as Donaldson-Thomas and Pandharipande-Thomas theories, and the geometric Langlands program. The program will include an introductory school, two topical workshops, a workshop focusing on AI and math, and a concluding conference, along with frequent seminars. The program website is https://www.esi.ac.at/events/e621/.